Mathematical Sciences: Numerical Computation of Pattern Formation in Combustion

This project involves the use of an adaptive pseudo- spectral method to compute solutions of models of solid and gaseous combustion that display spatio-temporal patterns. In particular, the principal investigator will study how flames undergo transitions to increasingly complex states through the mechanism of pattern formation. The study of how flames propagate is an important area that has attracted the attention of scientists, mathematicians and engineers. In this proposal the principal investigator will find numerical solutions of combustion problems that model the evolution in time of pulsating flames, cellular flames and travelling flame fronts.